Properties of the Einstein Equations and Gravitational Lensing in Relativity

There are two main subprojects in this theoretical
gravitational physics project. On the one hand, the
suitability of a new way of specifying information
necessary for numerical simulations of gravity using
the Einstein equations will be studied. This refers to
gravitational information flowing across the boundary
into the region where gravity is being simulated. On
the other hand, a formula for path corrections to light
rays in response to the thickness of a nearby massive
object will be sought within the framework of the
theory of general relativity.

The first subproject is, potentially, of deep relevance
to the successful simulation of gravitational wave
signals expected at powerful new detectors such as the
Laser Interferometer Gravitational Wave Observatory
(LIGO). The detectors are expected to open a new
window of research into cosmology and astrophysics
by listening to gravitational waves, rather than
electromagnetic waves such as visible light or x-rays.
The second subproject
has potential relevance to the current astrophysical
practices of extracting information about the mass of
the universe from deep-space pictures by advanced
instruments such as the Hubble Space Telescope.
Undergraduates will participate in this research.